Mathematical Sciences: Asymptotic Solutions of Differential Equations

In this project the principal investigator will work on establishing the multisummability of formal power series that are the solutions of algebraic differential equations. The notion of multisummability is a generalization of the concept of Borel summability. Recently W. Balser gave a simple characterization of multisummability of formal power series. The principal investigator will employ these ideas of Balser along with the asymptotic calculus of Gevrey to study the structure of solutions of nonlinear algebraic differential equations. The study of the properties of solutions of systems of algebraic differential equations is of interest for its own sake and for the light it sheds on a number of problems in algebra and analysis. Around the turn of the century mathematicians like Poincare and Painleve were able to provide formal series solutions to several broad classes of differential equations. This work led in turn to advances in asymptotic calculus, since it showed that very often divergent series solutions are as good as or better than convergent series solutions. In this project the principal investigator will apply some of the latest results on divergent series to study the solutions of nonlinear algebraic differential equations.